Presidential Young Investigator Award: Generalized Scaling of Radiation Heat Transfer

This research is radiation heat transfer in anistropically scattering, absorbing and emitting media. The principles of heat transfer will be applied to develop scaling laws to predict the radiative heat transfer in these media. The effects of real gases and scattering particulates will be considered. Nongray effects will be included by using the exponential wide band model. The gaseous mean beam length concept will be applied for multidimensional scaling. Some of the existing techniques for multidimensional radiation calculations will be tested in this research.